Ionic Signals and the Initiation of Neurogenesis

The proposed work investigates the signals that initiate formation of the central nervous system during embryonic development. Specifically, it examines the relationship between two cellular events that occur in response to neural induction in the Xenopus embryo: the increase in activity. It further investigates the roles of the increase in pHi and the activation of protein kinases in the switch from epidermal to neural development. This work will identify the ionic regulatory mechanisms resposible for the pHi increase and determine whether protein kinase activity mediates this pHi increase in ectoderm cells, via microfluorimetry experiments involving the intracellular fluorescent pH indicator BCECF-dextran. Other studies use immunohistochemistry and RNase protection assays to ask whether increases in either pHi or protein kinase activity are responsible for changes in gene expression in the responding ectoderm. These studies should provide fundamental insight into the cellular basis of developmental commitment, pattern formation, and the initiation of neurogenesis.